SBIR Phase I: Novel Projection Display System

This SBIR research project will develop and demonstrate an innovative technology to turn a transparent glass or plastic panel into a full color, high contrast electronic information display, without affecting the optical transparency of the panel. Novel quantum dots based materials will be developed and applied to the display, in addition to the demonstration of a corresponding video color projector. The feasibility on a color 20 inch transparent video display system for indoor application will be demonstrated prior to developing a fully functional large panel transparent display prototype.

This display technology will leverage and create a broad spectrum of commercial applications and change the way people use "glass" for centuries. For example, success of the project will enable a mass deployment of the innovative transparent display technology in automobiles and significantly improve the safety of US highway: It will properly deliver message or alerts to drivers, who don't have to turn eyes away from the road to search for information under the dashboard display.